Parallelization of Particle Transport Algorithms in Semiconductor Device Physics

9312240 Goodnick This is a renewal project to continue the development of parallelized algorithms for semiconductor device simulation using particle methods. Improvements will be made to the prototype multiprocessor code PMC-3D to include state of the art physics such as full band structure effects, and generalize the code for a variety of different device technologies and arbitrary geometries. The codes will be developed in a high level parallel language (Dataparallel C) to increase their portability from machine to machine. Furthermore, full electromagnetic solutions rather than Poission's equation will be coupled in the particle-force calculation, in order to develop simulation tools for high frequency microwave and optoelectronic device applications. Parallel particle transport algorithms for semiconductor devices to include molecular dynamics and cellular automata techniques will developed. In the molecular dynamics case, hybrid particle-particle particle-mesh methods will be investigated to find efficient parallel algorithms which would greatly reduce the computational requirements of this technique. Parallel cellular automata device simulation algorithms in three dimensions will be developed and compared with Monte Carlo methods as a cost effective alternative to the latter technique. ***